Fundamental Problems in Quantum Theory Workshop; Baltimore, Maryland; August 4-7, 1997

This grant is for support of students and young researchers to attend the workshop on `Fundamental Problems in Quantum Theory` to be held at the University of Maryland/Baltimore from August 4 to August 7, 1997.